Dynamic Relation Between Stock Returns and Trading Volume

9414112 Wang Economic analysis of markets relies on the examination of two key variables, price and quantity. In the study of financial markets, however, the focus has been mainly on the behavior of security prices while little attention has been paid to quantities like trading volume. This is because trading volume provides no additional information about prices in conventional representative-agent models. But these models perform poorly in explaining the historic security returns. This has led researchers to develop models with incomplete security markets and heterogeneous investors. In these models, the dynamic relation between volume and returns of individual stocks depends on differences in information among investors (e.g. some investors have better information about future payoffs) and other differences among heterogeneous investors. This project develops an equilibrium model of stock trading and pricing in an intertemporal multi-asset setting. The model involves dynamically optimizing investors who trade competitively in the market for both informational and non-informational reasons. Their trading drives the equilibrium prices of stocks as well as the volume of trade. Testable implications will be derived concerning the time series as well as cross-sectional behavior of the joint price-volume series of individual stocks. The second part involves the empirical analysis of the data on the price- volume series of individual stocks and the direct tests of the theoretical implications.